The Oxygen Isotopic Composition of Phosphate in the Oceans: A New Tracer for Nutrient Sources and Nutrient Dynamics

ABSTRACT

OCE-0082416

The marine biogeochemical cycle of phosphorus is intricately linked to the partitioning of major and trace elements within the ocean and to the atmospheric abundance of CO2, and on longer time scales, O2, through its role as an important nutrient. Preliminary work by the PIs has shown that the oxygen isotopic composition of dissolved inorganic phosphate (d18Op) in continental sources of the weathering flux of phosphate is quite distinct from that of the deep ocean and varies with depth. These variations in space and time of the d18Op in the oceans can be used as a means of estimating the rates of the biogeochemical and physical processes that control the availability and the isotopic composition of dissolved inorganic phosphate. For this reason, the PIs propose to measure profiles of d18Op with depth at the HOT and BATS sites, as well as in transects of the Housatonic and Connecticut Rivers of Long Island Sound using new methodologies for sampling and analyses.